Purchase of a 300 MHz NMR Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of Texas in Austin will acquire a 300 MHz NMR Spectrometer. This equipment will enable researchers to carry out studies on a) molecular sensors; b) synthesis of "foldamer" molecules that fold into a compact, predictable higher-order structure; c) synthesis of porphyrins and synthetic porphyrin analogues; and d) the fabrication of materials with desired interfacial properties.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in a number of areas including materials chemistry.